Investigations of Electronically Conductive Polymer Nanostructures

9528429 Martin Monodisperse conductive polymer nanowires and tubules can be prepared by synthesizing the desired polymer within the pores of nanoporous filtration membranes. The primary objective of this proposal is to use the template method to investigate the effects of molecular and supermolecular structure on electronic conduction in conductive polymers. Specifically, measurements of the temperature and pressure dependence of conductivity, the field dependence of conductivity, and the temperature and pressure dependence of the magnetoresistence, photoconductivity, and Hall effect will be used to explore how structure affects hopping distance, localization length, and density of states at the Fermi level in template-synthesized electronically conductive polymers. %%% The largest impediment to a thorough understanding of electronic conduction in conductive polymers is the inability to prepare samples whose properties can be reproducibly and predictably controlled. Template-synthesis allows for this type of structural control and thus provides a unique opportunity to explore the fundamentals of electronic conduction in these materials. ***